Problems in Muldimensional and Nonlinear Systems Theory

9987636
Ball

A fundamental object of study since the 1960s from a number of points of
view has been that of a ``Schur-class function'' and its operator-valued
generalizations, i.e., a holomorphic function defined on the unit disk
whose values are contractive operators mapping one Hilbert space to
another. Schur-class functions arise as the characteristic function for a
contraction operator in the operator-model theory of Livsic-Brodskii, Sz.-
Nagy-Foias and de Branges-Rovnyak, as the transfer function of a unitary
colligation (or energy-conserving discrete-time, input-state-output linear
system), and as the scattering function of a discrete-time scattering system
in the sense of Lax-Phillips and Adamjan-Arov. A major theme of the
project is to develop this same confluence of ideas for various
multivariable systems. In the first such multivariable setting, the
generalized Schur-class function is analytic and contractive on the unit
polydisk in multidimensional complex Euclidean space, and is the transfer
function of an energy-conserving multidimensional system of the type
considered by Roesser. The geometry of which scattering systems
actually arise from a conservative Roesser input-state-output system lends
insight into which contractive functions on the polydisk satisfy a von
Neumann inequality (i.e., induce a functional calculus which maps tuples
of commuting contraction operators to another contraction operator). In
the second incarnation, the generalized Schur-class function is a power
series in finitely many noncommuting variables, and is the transfer
function for a system with time parameter taken to lie in a free semigroup
with finitely many noncommuting generators. This analysis will give
additional insight (on the system and scattering theory side) to recent work
on model theory for row contractions and function theory on the ball in
multidimensional complex Euclidean space. In the third incarnation, the
generalized Schur-class function is actually a contractive bundle map
between two parahermitian bundles defined over an algebraic curve
embedded in complex Euclidean space. This analysis will lead to a
discrete-time version of the Livsic multivariable system theory and a
model theory for commuting tuples of nonunitary operators, as well as
another multivariable scattering theory. Finally, the project includes an
application of some of these ideas to nonlinear settings, specifically, the
development of a nonlinear H-infinity control theory for nonlinear systems
with stopping cost, switching cost, and/or boundary state-space
constraints.

The notion of an energy-conserving (or more generally, dissipative)
system has long been a fundamental notion in a number of disciplines
(e.g., classical and quantum mechanics and circuit theory). A more recent
generalization of this notion allows interaction of the system with an
outside environment through input and output signals, and the enlargement
of the energy bookkeeping to take into account energy exchange with the
outside environment. This notion in turn, together with the function and
operator theory associated with it, has been fundamental in recent
advances in the theory of robust control, where the engineer seeks to
design a feedback control to guarantee satisfactory performance of a
system even in the presence of unmodeled disturbances in the outside
environment and/or modeling errors in the mathematical description of the
system. The goal of this project is to push these ideas in fundamental, new
directions, namely: (1) new types of multidimensional systems and
scattering, and (2) nonlinear systems with discontinuities arising from (a)
instantaneous switching of the control setting, or (b) instantaneous jumps
in the state dynamics caused by boundary reflections. The first direction
has direct application to systems that evolve in both time and in a spatial
dimension, as well as to uncertain systems with a modeled parameter-
variation uncertainty and certain types of nonlinear systems. The second
direction is relevant to physical systems where instantaneous jumps occur
between two or more continuous-model descriptions (hybrid systems)
(such as in the setting of a traffic signal at a highway intersection), as well
as to systems where the set of admissible values for some physical
quantity has a boundary which leads to a boundary reflection in the system
description (such as the constraint that the queue lengths be nonnegative in
a queueing network).